ISR Standard Reference Soils and Testing Program

The objective of this interlaboratory testing program is to use twelve of the most common ASTM geotechnical standards and involve an estimated twenty voluntary laboratories distributed across the United States to develop four standard reference soils. The test results will be used to develop reliable precision statements for the selected standards which will be submitted for consideration to the appropriate technical subcommittee for inclusion in each standard. Four soils, which represent a wide range of typical deposits, will be used for the program. Large quantities of each soil will be processed to provide sufficient material for possible retesting and establish a stockpile for commercial use. At the conclusion of the research, these stock piled soils will be standard reference soils for the twelve standards. These soils will be available through ASTM Institute of Standards Research (ISR) for quality assurance and quality control programs, research applications and education and training.